Support of US-Egypt Joint Projects in Biotechnology

0136801
Gehlhar

Description: This award is to provide funds to the United States Department of Agriculture, Washington, DC to support three joint research projects in the area of agricultural biotechnology. The program director is Clemen Gehlhar, of the USDA/Foreign Agriculture Service. These projects include: 1) holding a workshop on developing an insecticidal nematode industry in Egypt, managed by Dr. Randy Gaugler of Rutgers University, New Brunswick, New Jersey and Dr. Sally Allam of Cairo University, Cairo, Egypt; 2) development of improved low-fat soft cheese, managed by Dr. Joseph Frank, University of Georgia, Athens, Georgia and Dr. Morsi El-Soda, University of Alexandria, Alexandria, Egypt; and 3) examination of poliovirus isolates from Egypt by nucleic acid probe hybridization signals to determine the pattern of virus spread, managed by Dr. Olen Kew, Center for Diseas Control & Prevention, Atlanta, Georgia and Dr. Naglaa A. Hamed, Egyptian Organization for Biological Products & Vaccines, Agouza, Cairo, Egypt.

Scope: The award allows USDA to support three collaborative projects involving US and Egyptian scientists, in areas of interest to the two countries. This award is made under the US-Egypt Joint Fund Program, which provides grants to scientists and engineers in both countries to carry out these cooperative activities.